Babine-Witsu Wit'en Verbal Morphology

9307704 HARGUS The disappearance Native American languages is a serious problem, requiring both scientific documentation and revitalization efforts. This is a linguistic study of the verbal morphology, phonology and syntax of a subarctic Athabascan Indian language (Babine-Witsu Wit'en) still spoken in British Columbia, Canada. The objective of the study is to provide a model of the morphological structure of verbs based on an understanding of the interaction of verbal morphology with syntax and phonology. Research will be conducted through native speaker interviews. Local objectives are to stimulate interest in linguistics among native speakers and to facilitate language pedagogical efforts throughout this language area. ***